Partial Support of the Board on Earth Sciences

This provides partial support for the activities of the National Research Council's Board on Earth Sciences and Resources. The Board coordinates the National Research Council's advice to the federal government in earth science issues, ranging from basic research through applications, to assistance in policy formulation. Such advice includes (1) identifying and enunciating the opportunities for advancing basic earth science research and understanding, (2) applying that information for hazard mitigation and resource utilization, and (3) analyzing the scientific underpinnings and credibility of earth science information for resource and other earth science applications and decisions. The Board's actions address the overall health of the earth science disciplines that are vital to the nation in maintaining and increasing its capability to make wise use of the Earth and its resources.